Combinatorial Enumeration and Random Generation

The study of bijections between combinatorial objects
has always remained an attractive part of Enumerative
and Algebraic Combinatorics. Despite their wide
applicability, their remains a complete lack of formal
understanding as to which bijections are equivalent,
and which one are "good" in a sense that they preserve
the natural structure of the combinatorial objects.
We initiate the study of asymptotic properties of
partition bijections and claim that a large class of
well known bijections are in fact "asymptotically stable".
Using CS-style reduction ideas we propose the first
formal way to formulate that all classical Young tableau
bijections are in fact linear tie equivalent. Other
combinatorial objects and several new directions
are also discussed.

Since the early days of mathematics, combinatorial objects
have played an important role. These objects, which
include various sets of graphs, trees, partitions of
integers, tilings of regions with smaller shapes, etc.
Finding or estimating the number of such objects is a
fundamental problem which has been resolved in some
instances and remains open in many other case. Sometimes
one is able to relate the number of such objects to the
number of other objects by means of a direct combinatorial
argument (a bijection). We propose an in-depth study of
the nature of these bijection, as to whether (and how)
they reveal not just the number, but structural results
on these combinatorial objects.